Mathematical Sciences: Multilevel Algorithms for Advanced Computers

This research program consists of a number of projects related to supercomputing. They include the Fast Adaptive Composite Method, Multilevel Load Balancing, Analysis of Preconditionings, Algebraic Multigrid, Multi-level Methods for Optimization, etc. The research results will have applications in many branches of science and engineering.